Motion Compensated Object Based Video Coding

This research program investigates an advanced video compression approach for applications such as multimedia, video on networks, video conferencing, and video on demand. It is a novel combination of object-based coding usually used for very low rates and 3-D subband/wavelet waveform-based coding, usually reserved for higher rates. In this method, the motion field is first segmented into objects which make up the image frame, and move at different velocities. The boundaries of these objects are coded using a type of contour coding which preserves the shape of the edge. This contour coding is performed as an update on the object boundaries found for the previous frame. Finally the interior of these space-time objects is coded using the waveform coding method based on motion compensated 3-D subband filtering. The overall goal is an efficient unified set of video compression algorithms scalable from video phone up to HDTV.